Studies of Large Scale Structure in the Universe

With NSF support the Principal Investigator has completed obser- vations of an IRAS selected redshift survey, has performed sta- tistical analyses of this survey as well as other NSF supported redshift surveys, and has continued his investigations of the evolution of structure in the Universe via N-body techniques. This research is now to be extended in two directions: (1) The redshift determination of IRAS selected galaxies will be extended to those with 60 micron flux greater than 1.2 Janskys. This will double the available sample size and permit much improved comparison to measurements of the peculiar velocity field of galaxies. (2) The N-body investigations of the formation of structure in the Universe are to be continued. Alternative techniques for inclusion of gas dynamical effects in the simulations will be investigated. Inclusion of additional physical processes beyond gravitation will be a powerful tool for study of the formation of galaxies, as well as the cooling of hot gas in gravitational potentials comprised of baryonic and non-baryonic material. Dr. Davis is a leading contributer to research on the theory and observation of the large-scale structure of the universe. He is the Chairman of the Astronomy Department at the University of California at Berkeley.